Development of High Deformation Rate Experiment at Elevated Temperatures

This project is to develop a facility for testing materials at high strain rates and high temperatures (2000F). Such conditions occur in aircraft engines and armor penetration problems. In addition to this testing domain should provide new insights into the mechanisms of plastic deformations.